Neutron Scattering Analysis of Biological Structures: An External Users Program

9318839 Korszun Funds are requested for the continuation of the Structural Biology Users Program at the High Flux Breeder (HFBR). These facilities include three beam lines equipped with two dimensional multi-wire area detectors for macromolecular crystallography, membrane diffraction and small angle scattering. The biology user program at the HFBR has been in existence for approximately 15 years and has serviced academic, industrial and federal researchers in the biological sciences as well as by physicists, chemists and material scientists from the U.S. and abroad. During the last grant period over 50 publications have resulted from work done at these facilities and currently there are over 50 investigators including postdoctoral associates and graduate students who are using the facility. In addition to providing hardware support for these researchers, the resident scientific and technical staff provide data analysis support and educational programs for the user community in order to maximize the productivity of our neutron scattering and diffraction program. During the last grant period, several major changes in hardware and software, including the installation of a new detector on the crystallography station were implemented. These changes have had the cumulative effect of increasing the throughput on all of the biology beamlines. %%% Biological structural studies using neutron diffraction and scattering techniques are important because they provide structural information which can not easily be obtained through other means. These studies are aimed at determining the structural basis for function of these systems thereby providing fundamental information which can be used to understand the basis of viable, healthy life and will provide strategies for the treatment of diseases. Because neutron structural studies are exquisitely sensitive to the location of hydrogen atoms, they have been used to determine the role of hydrogen in enzyme reactions, the location and delivery of drugs across cell membranes and the organization of large biochemical systems such as muscle, ribosomes and chromosome structure. Because of the successful pioneering studies on these systems at Brookhaven National Laboratory, we are in a position to probe the frontiers in structural biology and to further our understanding of these systems thereby facilitating discoveries with biomedical and environmental applications. ***